Integrated Use of Computer Activities to Enhance Understanding in Introductory Discrete Mathematics and Calculus Courses

This project will support the establishment of a microcomputer laboratory which will be an integral part of a program to improve the beginning mathematics education of undergraduates in science, engineering, and secondary education at Purdue University. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the stated goal of improving "the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering." In particular, this laboratory will be a key element in the development of a computer-based discrete mathematics course for pre-service high school teachers and in the design of a calculus sequence appropriate for large classes. Types of computer activities and approaches will include the use of symbolic manipulation and graphics and the performance of tasks designed to encourage cognitive development.